Introduction of Molecular Genetics Equipment into the Biology Curriculum at Saint Augustine's College

Molecular genetics is being introduced into the laboratory component of the undergraduate course in Genetics. Acquisition of new equipment, including a high speed centrifuge, rotors, analytical balance, freezer, incubator, spectrophotometer, sterilizer, shaker, and transilluminator, alleviates a major deficiency in the curriculum. As a result of these improvements, students will increase their reasoning skills and their understanding of modern biotechnology. This should have a major impact on this Historically Black College. The college is contributing an amount equal to the award.